US-Russia Cooperative Research: Designing Gold(I) Complexes for New Materials

This award in International Programs and the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports collaborative research by Dr. Alice E. Bruce of the University of Maine and Dr. Dmitri Lemenovskii of Moscow State University (Russia). The goal of the project is to design gold complexes that will be useful in new materials, such as liquid crystals. Organogold compounds containing rod-shaped molecules will be synthesized and structurally characterized. Lattice effects in liquid and solid phases formed from the compounds will be studied. Both groups are experienced in the synthetic aspects of the research, but will take advantage of the University of Maine's capabilities in testing physical properties of new materials. Chemists at Moscow State University will develop methods to deposit metallic gold by laser photolysis of the gold compounds. This is the first collaborative research project between the two principal investigators. The award will enable an exchange of graduate students between the University of Maine and Moscow State University.